Extension of Theoretically Based Critical Heat Flux Predictions to Very High Heat Removal Rates

Boiling heat transfer is used as the preferred mode of heat transfer whenever very high rates of heating or cooling are needed. A pivotal issue in boiling heat transfer is the so-called critical heat flux, because it represents the highest rate at which heat can be transferred by boiling. This work will extend prior knowledge of the critical heat flux to more demanding situations.